Fluidization 1992: The Seventh Engineering Foundation Conference

This award provides partial travel support to 17 U.S. academic researchers to the "Fluidization 1992: The Seventh Engineering Foundation Conference" Scheduled for May 3-8, 1992 in Australia. Each participant will present a scientific paper. The Engineering Foundation Conference on Fluidization is the most prestigious international conference in the field, and it is held at intervals of three years. At the Seventh Fluidization Conference will be presented 181 papers from 31 countries. The conference will be a forum for the latest developments in fluidized beds nd other fluidization technologies for importance to chemical, energy, minerals resources, and material industries. An assessment of the state-of-the-art world wide be made at the conference.